Research Experiences for Undergraduates in Physics at the University of Pittsburgh - Focus on Minorities

This action will support ten students in an REU Site at the University of Pittsburgh. The students will participate in a combination of academic studies and research. Minority students are particularly encouraged to apply.